Fundamental Experiments in Elastohydrodynamic Lubrication

A torsional Kolsky (split-Hopkinson) bar will be used to investigate the behavior of elastohydrodynamic lubricants which are subjected to high shear rates while they are in the glassy state. Short duration shear stress pulses will be used and the lubricant will be maintained below its glass transition temperature for the hydrostatic pressure in question. The effects of temperature and shear rate will be studied. The results will be used to model the fundamental behavior of hydrodynamic lubricants.